Course Improvement Through FT-NMR Spectroscopy

The Department of Chemistry is purchasing a 60 MHz FT-NMR for use in several laboratory courses in which are heavily dependant on spectroscopic techniques, including microscale organic laboratory, physical chemistry laboratory, and instrumental analysis. The new instrument with is enhancing the laboratory experience of our students by permitting a conversion of the organic chemistry laboratory to microscale techniques. Students obtain carbon-13 Free Induction Decay (FID) spectra on their recation products by modem from a neighboring university, convert them to frequency domain spectra and subject them to any desired analysis. The instrument is also being used by students undertaking independent research.